Dynamical Diagnoses of the Observed 'Asian Summer-Monsoon Rainfall - El Nino' Relationship

Abstract ATM-9316278 Nigam, Sumant University of Maryland - College Park Title: Dynamical Diagnoses of the Observed 'Asian Summer-Monsoon Rainfall - El Nino' Relationship The project seeks to establish the dynamical basis for an empirical linkage between interannual fluctuations in the Asian summer- monsoon rainfall and the El Nino/La Nina episodes through diagnostic modeling of the observed monthly/ seasonal tropospheric circulation anomalies over the Asian continent (and global tropics and extratropics) during both the northern summer and the pre-'monsoon-onset' (March-May) seasons. An understanding of the forcing of the lower-tropospheric and near-surface circulation anomalies will be emphasized as these are critical both to the generation of monsoon-rainfall anomalies and tropical oceanic- circulation anomalies. The project objectives also include diagnostic modeling/analysis of A) the forcing of the northern-autumn (Sept. - Oct.) circulation anomalies over the Pacific in order to reveal potential feedback of the anomalous Asian summer-monsoon rainfall on the subsequent El Nino/La Nina development, and B) of the potential extratropical forcing of interannual-variability of the Asian summer-monsoons by Eurasian springtime snow-cover anomalies. The research-tasks include: 1) Estimation of the 3-dimensional diabatic heating field (and transient eddy-flux convergence) from the global ECWMWF-analyses data sets for this diagnostic project is based on operational- analyses rather than GCM simulation of anomalous monsoons. 2) Linear simulations with a multi-layer global steady primitive-equation model linearized about a zonally-varying climatological flow -- a necessary first-step in such dynamical- diagnostic analysis. (Meeting this prerequisite will also allow identification of the most consistent diabatic-heating estimate.) A 'direct-access' adaptation of an LU decomposition method should permit higher linear-model resolution than previously possible. 3) Identification of the characteristic structure of the El Nino-related heating anomalies over the tropical Pacific and Indian oceans during March - May and June - August periods, and a computation of their remote response over Asia. The remote impact of just the Pacific-basin heating anomalies will also be assessed. 4) Calculation of the 'Himalayan-Tibetan orography' - forced anomalous circulation during all recent summers, and an examination of its phase in the Asian lower troposphere vis-a-vis that of the remotely-forced anomalous thermal response. This aspect of the proposed research may help explain the basis for the perplexing threshold-dependence in the Monsoon-El Nino linkage. Results of a pilot study are indicative of the potential insight that such dynamical-diagnostic analysis can provide in improving our understanding of the interactions (and potential feedback) between anomalous Asian summer-monsoons and El Nino/La Nina episodes--the two global-scale climate anomalies whose understanding, simulations and ultimately prediction will be central to the success of the TOGA/GOALS missions.